CISE Research Instrumentation: A Specialized Computing Environment for Distributed and Virtual Design and Manufacturing

EIA-9986012
Dana S. Nau
University of Maryland-College Park

CISE Research Instrumentation: A Specialized Computing Environment for Distributed and Virtual Design and Manufacturing.

The University of Maryland will create a specialized computing environment for distributed and virtual design and manufacturing. This facility will support research in computer and information science sand engineering. The University of Maryland will purchase two graphics workstations, two NT-based servers, and the necessary software for developing the facility. The computing environment will be dedicated to several on-going projects on distributed and virtual design and manufacturing. These projects will yield specific contributions in areas related to computing and information systems. With this facility, the investigators can install and integrate our approaches, share data across various projects effectively, and test our results more thoroughly. Thus we can study and solve the computational challenges that will occur as manufacturers develop advanced, information-based product realization processes